U.S. Participation in Second US/Japan/China Conference on Physics Education

This project supports 30 U.S. high school and college/university physics teachers in the participation at the second U.S./Japan/China Conference to be held in Japan July 23-28, 1991. The focus of the conference is the interface between high school and college/unversity physics teaching and the U.S. delegation will pay particular attention to successful methods used in both Japan and China. Post- conference networking and dissemination activities are included in the project.